Frameworks for Interactive Software Development

Proposal: CCR-9988531
Principal Investigator: Graham, Susan L.
Institution: University of California, Berkeley

The Harmonia Framework for Interactive Software Development

Both societal infrastructure and the economy depend on increasingly
complex software systems. To create and maintain high-quality
software, developers need software tools and services that enhance
their productivity. The goal of this research is to devise the
underlying technology that provides developers with integrated
language-based interactive tools and services. The technology
can be used to create multi-lingual and language-portable
development environments or to create new tools for existing
environments. The languages at issue are the myriad of
formally-specified system architecture, specification, design,
programming, scripting and command languages used by the developer.
Better language tools make it easier to develop and use new
domain-specific languages, and to extend development environments
to dialects of existing languages. This research will address
several aspects of interactive language-based software development.
The starting point is an existing language-based framework that
provides an annotated structural representation of programs,
together with an embedded history of changes and support for
incomplete or incorrect versions during the development process.
This project will devise a method to improve the ease of formally
specifying the semantics of languages, will create new analyses
and transformation capabilities, and will create the means to
integrate externally developed analyses and program manipulation
services into the framework.